Mathematics And Science Enhancement II

9552863 Carl This Local Systemic Change project will enhance all elementary teachers in 60 out of the 130 elementary schools in Clark County (CCSD). It is a five year project that will begin with 10 schools, then bring in 20 more and finally 30 more to reach a total of 2,040 teachers. The effort will be centered around 6 Teachers on Special Assignment (TOSA's), 50 teacher leaders and 20 administrators. Each teacher will be engaged in over 100 hours of professional development over three years. Approximately 40 hours will be based in classroom settings. TOSA's will support teachers to implement newly adopted science and math modules. Each TOSA will spend full days in assigned schools but much of their leadership work will take place after school, on Saturdays and during the summer. Professional development activities will target three levels of teachers. 1. Emerging-introductory institutes for those new to hands on learning to acquaint them with newly adopted resources. 2. Developing continuing workshop and classroom support for teachers as they focus on effective use of adopted exemplary materials. 3. Extending sessions for personal growth and reflection and for leaders of the reform. The school district is committed to establishing five materials resource centers which will supply and distribute materials to all schools. The mathematics and science expertise is provided by a cadre of external consultants who will deliver the workshops to the teachers. The request is for $6,000,000 with cost share amounting to $8,108,950.